U.S.-China Cooperative Research: Polyoxoanions as Organic Oxidants

This award is to support collaborative research between Dr. Walter Klemperer, University of Illinois, Urbana, and You Xiaozeng, Nanjing University, on polyoxoanions as organic oxidants. In this research, the effectiveness of certain chemical compounds as catalysts for organic oxidation will be investigated with the objective of determining the oxidation mechanisms involved. This research will draw on the interests and capabilities of the two PI's and allow them to complement and strengthen research efforts already underway on the organic chemistry of polyoxoanions. The joint efforts to prepare polyoxoanions which can be characterized and used to perform organic oxidations is expected to help determine the mechanisms involved in the oxidation process of certain early transition metal oxides which are extremely difficult to characterize.